Air Entrainment by Translating Plunging Jets

Abstract
CTS-9876434
Kenneth T. Kiger
University of Maryland College Park

Air entrainment by a plunging jet is experienced in a wide range of natural (e.g., a waterfall) and technological (e.g., a chemical plant mixing vessel) flows. This flow has not, however, received attention as a basic flow module for such technological or natural flows.

The proposed study is one that takes clever advantage of existing equipment and experimental techniques to investigate the basic features of this class of flow fields. It is expected that the study will yield bench mark results.